A Genetic Approach to Ordered Sequencing of Arabidopsis

9632082 This award supports a consortium of three laboratories located at Cold Spring Harbor Laboratory, Washington University at St. Louis and the Applied Biosystems in forest City, California. It supports the group's effort to produce at least 7 Mb of finished sequences of DNA from chromosome 4 and 5. The sequencing strategy uses a combination of shotgun and more ordered approaches. This group makes maximal use of softwares and technologies developed for the C. elegans genome sequencing project for sequencing and finishing large contiguous DNA pieces. All sequences will be deposited in GenBank upon completion of each BAC clones. Unfinished sequence data will be made available on a WWW site very rapidly. Clones and other materials will be made available through the Arabidopsis Biological Resource Center at Ohio State. This award is one of the three awarded by the triagency (Department of Energy, National Science Foundation, and US Department of Agriculture) Arabidopsis thaliana genome research program. The activity of this consortium will be coordinated with the other groups engaged in large scale sequencing of the Arabidopsis genome. The results will contribute to determining the overall strategy for the completion of the sequence of the entire Arabidopsis genome. More importantly, the information and data produced will be useful to the general research community and will contribute to rapid advances in plant biology.